Sperm-Egg Interaction: Lysin Structure and Function

The first objective is to solve the crystal structure of red abalone sperm lysin using multiple isomorphous replacement. The structure will then be refined at 1.9A resolution. This structure will serve as a basis for homology modeling the structure of seven other abalone sperm lysins for which Dr. V.D. Vacquier has the primary sequences. The superposition of sequence and structural information will allow an understanding of how the hypervariable regions of the molecule define species specificity while the highly conserved regions confer common function to all lysins, which is dissolution of the vitelline envelope surrounding the egg. At the same time, the modeling analysis will be used to design site-directed mutants, which can be assayed for biological activity by V.D. Vacquier, to test the structural hypothesis. Crystallization experiments with the lysins from the other species, and the mutant lysins, will be carried out, in order to obtain additional crystal structures to support or correct the structures observed by homology modeling. %%% The significance of this project pertains to the molecular events which take place during fertilization. The molecule being studied, sperm lysin, is responsible for dissolving a hole in the membrane surrounding the egg so that the sperm can penetrate this membrane. The species being studied, abalone, offers experimental advantages in isolating the protein components for both the sperm and egg. By solving the three-dimensional structure of lysin, we can infer how the protein functions. No structure of a protein involved in fertilization has ever been solved. V. D. Vacquier, who provides samples of lysin, has primary sequences for lysins from seven abalone species. The sequences show regions of extreme variability and contrasting regions of absolute conservation. Once we know the structure of one lysin we can map the sequence data onto the structure. The variable regions are important for correct species discrimination by abalone sperm and egg cells. The conserved regions are important for function, which is membrane insertion and binding. Both processes, species recognition and membrane insertion, are phenomena of general biological significance.